FRG: Collaborative Research in Semiclassical Asymptotic Questions in Integrable Nonlinear Wave Theory

Abstract

DMS-0354373 FRG: Collaborative Research in Semiclassical Asymptotic Questions in Integrable Nonlinear Wave Theory

Peter Miller, Kenneth McLaughlin and Jared Bronski

The goal of applied mathematics is the study of equations of scientific,
engineering or industrial interest in a mathematically rigorous way.
Understanding such equations often requires considering
a limit in which certain parameters approach zero. While
some of these problems behave in a predictable manner in the
limit, other interesting and important problems involve unstable
behavior that becomes less and less predictable the smaller the
parameter of interest becomes. One of the best illustrations of this
concept is the behavior of fluid flows when the viscous drag is small,
and the fluid behaves in a turbulent and chaotic way.
The primary model under study in this project is the nonlinear
Schrodinger equation, which is a fundamental model for the study of
pulses in optical fibers. The small parameter limit for this
model corresponds to the limit of ultra-short pulse propagation, which
is expected to find many applications to high-speed telecommunications.
This limit is known as the semiclassical limit.
This project constitutes an in-depth study of initial-value problems
for several partial differential equations (PDEs) in the semiclassical
limit. Existing formal theories fail because they lead to model problems that are
ill-posed and thus make no prediction at all for reasonable initial
conditions. The goal of this project is to develop asymptotic
theories that are not based on any particular ansatz and do not
require unphysical conditions on the initial data. Among the problems
under attack is the rigorous semiclassical analysis of the focusing
nonlinear Schroedinger equation for general data, a problem that is
generally considered to be one of the most important open problems in
the field of integrable systems. The specific aims of the project
include the development of new ansatz-free methods of asymptotic
analysis --- for spectral theory and for Riemann-Hilbert problems of
inverse-scattering theory --- that are insensitive to analyticity
properties of the initial data, and have a "nonlinear
Riemann-Lebesgue" character, directly exploiting cancellation due to
oscillations where analytic deformations are impossible. These
techniques, once developed, will also have important repercussions in
fields that are only tangentially related, for example, the theory of
orthogonal polynomials of large degree and the statistical analysis of
large random matrices.

The main goal of the proposed work is to develop predictive tools that
apply to extremely unstable systems when the initial conditions
are rough or noisy. An example of such a system is the one governing the
propagation of ultrashort data pulses in certain optical fibers, and
therefor any new insights into such systems will have repercussions
in the field of telecommunications. Some of the problems we propose to
study admit a detailed analysis because they are idealized and can in some
sense be solved exactly; however our work is also expected to lead to general
methods that are applicable to less idealized systems.
These techniques will also have important implications in mathematical
fields that are only tangentially related, for example, the theory of
orthogonal polynomials of large degree and the statistical analysis of
large random matrices.This project also has an important educational
aspect. We plan to involve both graduate students and postdoctoral researchers in
this work, and the advanced training of the next generation of researchers
is an important component of this proposal. We also plan an
interdisciplinary workshop to further disseminate the results of this work beyond the
boundaries of the mathematical community.